Symposium on Metal Ions in Biology and Medicine: Natural and Synthetic Approaches to be held in Honolulu, Hawaii 17-22 December 1995.

; R o o t E n t r y F Ko4 4 C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l Ko4 4 Ko4 4 ( ! " # $ % & ' ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I J F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e J J n n n n n n n D 1 # & u T ; D n D n n n n n n n n 5 9511927 Dawson This symposium Metal Ions in Biology and Medicine: Natural and Synthetic Approaches will be held in Honolulu, Hawaii, December 17-22, 1995. It will bring to the attention of the chemical community new advances in the area of the structural and catalytic properties of metalloenzymes, the use of biomimetic metal complexes to model the structural and catalytic properties of metalloenzymes, and to introduce the emerging research areas of metal-nucleic acid interactions and therapeutic uses of metal complexes. %%% Metal ions play an essential and yet imperfectly understood role in biological catalysis and participate in a large number of transformations within cells. This meeting brings together biochemists, biophysicists, and inorganic chemists who actively study the role of metal ions in biology and medicine. *** ; Oh +' 0 $ H l D h R:\WWUSER\TE MPLATE\NORMAL.DOT S u m m a r y I n f o r m a t i o n ( 9511927 marcia steinberg marcia steinberg @ I y 4 @ @ {\! 4 @ Microsoft Word 6.0 2 ; E F J U F J ! ! ! ! K @ Normal a b c " A@ " Default Paragraph Font J J J J 5 marcia steinberg!\\CLM11\MCBPUB\BIOCHEM\DAWSON.ABS @HP DeskJet Printers LPT1: HPDSKJET HP DeskJet D L f , , " W d }w;W } d " W HP DeskJet D L f , , " W d }w;W } d " W I I I F 1 Times New Roman Symbol & Arial " h .3 EE3 E $ ; 9511927 marcia steinberg marcia steinberg ; ;